Statistical Inference Based on Data Tilting

The investigator studies three subjects: extreme value
theory, ARCH/GARCH models, and nonparametric regression with censored
data. The particular issues examined in this proposal include:
1) constructing confidence intervals for high quantiles
in risk management; 2) constructing confidence intervals
for the difference of two means with heavy tails; 3)
constructing confidence intervals for parameters in ARCH/GARCH
models; 4) constructing a confidence interval for the maximal
moment exponent of a GARCH (1,1) sequence; 5) forecasting the
1-step ahead conditional Value-at-Risk based on GARCH models;
6) applying the data tilting method to obtain confidence
intervals for the tail index of a double autoregressive model;
and 7) applying the data tilting method to obtain confidence
intervals for a conditional survival function with censored data.
The proposed activity described above involves
novel applications of data tilting methods. The research
approach is a combination of theoretical asymptotic analysis,
Monte Carlo simulation and real data analysis.

The problems studied in this project arise from real
applications in various fields including
meteorology, hydrology, insurance, and
finance. Examples are: in the design of electrical
distribution systems and buildings, the extremes of
wind pressure loading must be accounted for;
insurers who underwrite the financial risk associated with
natural risks like floods, storms and earthquakes must
have good estimates of the size and impact of extreme events in
order to set their premiums at a profitable level.
This project studies the following issues: modeling extreme
events; predicting Value-at-Risk in risk
management; estimating frontier functions for comparing the
performance of different firms; estimating parameters
of volatility models in financial time series; and estimating the
conditional life time in assessing the influence of risk factors
on survival. Progress in this project can enhance
the interaction among several areas in statistical science, including
extreme value theory, nonparametric smoothing, time series analysis,
and survival analysis. The new methods to be developed
can be applied to financial time series, sea level prediction,
internet traffic data, medical data, to name a few. The
theoretical asymptotic results to be developed are expected to have
broader applications as well.